SBIR Phase II: Intuitive Touch Feedback via Ungrounded Tactile Shear Feedback for Virtual Reality and Human-Machine Interfaces

The broader impact/commercial potential of this project is its potential to revolutionize human-machine interfaces, with possible applications in computer-aided design (CAD); military, maintenance, and pilot training interfaces; industrial and construction operator interfaces; robotic and laparoscopic surgery; physical therapy, rehabilitation, and swing training; education; telerobotics; automotive navigation and safety systems; and video games. While haptic interactions in these applications can already be portrayed with desktop robotic force feedback devices, the developed haptic technology could provide realistic haptic feedback at a much lower price point (required for consumer devices) and unlike current force feedback devices, the developed haptic devices can be used to naturally interact in large workspace applications like motion-input video games or VR experiences. The proposed research will enhance the scientific understanding of human-haptic and multi-modal interactions in virtual environments, and will create a model for this technology to migrate into adjacent fields.

This Small Business Innovation Research (SBIR) Phase 2 project seeks to meet the market demand for intuitive, immersive, and inexpensive haptic technologies in the emerging field of consumer virtual reality (VR). Multiple companies are now making inexpensive 3D head-mounted displays (HMDs) for VR, but current haptic interfaces are either too expensive, have limited range of motion, or are too crude to portray realistic haptic interactions in VR. The company has created an ungrounded haptic motion controller that utilizes a new form of touch feedback that applies in-hand shear forces to create compelling physical feedback at a price that is viable for consumer markets. The proposed research objectives are based on feedback from key stakeholders and VR enthusiasts who have tried the company’s current high-end haptic controllers. Their feedback suggests improving the overall user experience of the controllers through reducing device size, mass, and system latency, while improving device ergonomics and reducing cost. The Phase II research builds on the findings of Phase I, which showed that even simpler implementations of the newly developed haptic technology were still found to be more compelling than traditional vibration feedback. The project will result in a reference design that can be mass produced.